Global Change Education Plan for Utah

9550123 Fridley The State of Utah is in the process of reviewing its secondary core science curriculum. They have determined that about one-third of the major objectives within the 9th grade curriculum are related to global changes in the oceans or atmosphere. Thus, as they say a "planning grant will provide Utah with an opportunity to assure that global change education remains prominent within the statewide ninth grade science curriculum; that teachers have exemplary lesson plans with local and statewide resources to help teach global change; that formal and informal community resources focused on global change are coordinated with the work of teachers and administrators in global change education; and that plans can be made to secure future sources of revenue to continue global change education training and coordination." A steering committee made up of teachers and science coordinators will develop a five year plan and establish a resource database. The impact of the program will be statewide, especially at the ninth grade level. Planning activities include a variety of meetings that will move the plan forward from concept to curriculum plans, by increasing the networks of interested teachers and administrators, developing a database including lesson plans produced by others about global change education. These will be evaluated for potential use in Utah. No-cost sharing information is provided.